Mathematical Sciences: Studies in Algebraic Geometry

This awards supports the research of Professor I. Dolgachev as principal investigator and Dr. V. Lunts as a postdoctoral associate to work in algebraic geometry. Professor Dolgachev will study the Scorza invariant of curves in projective space, as well as the connection between certain hypergeometric functions and moduli spaces. Dr. Lunts will work on characteristic varieties of Verma modules on flag varieties, the hard Lefschetz theorem and the cohomology of toric varieties. This research is in the field of algebraic geometry, one of the oldest parts of modern mathematics, but one which blossomed to the point where it has, in the past 10 years, solved problems that have stood for centuries. Originally, it treated figures defined in the plane by the simplest of equations, namely polynomials. Today, the field uses methods not only from algebra, but also from analysis and topology, and conversely it is extensively used in those fields. Moreover, it has proved itself useful in fields as diverse as physics, theoretical computer science, cryptography, coding theory and robotics.